Investigation of a Robust Software Architecture for Safety-Critical Applications

Software for safety-critical control systems must be highly reliable since failures can have catastrophic consequences. A novel approach is proposed for assuring ultrahigh reliability requirements for these systems using multiple program versions that satisfy different functionalities. One version implements the safety-critical functions of the system while other versions provide more optimal and refined control. Each program is a general relation that computes all possible outputs for an input. The system output is obtained from the intersection of all the output sets with a guarantee that the safety-critical version will never be violated. This approach allows the reliability of the system to be assessed cost-effectively. It also facilitates the use of advanced adaptive and learning control algorithms for the non-safety-critical versions. The project includes analysis of the properties of the architecture, syntax and semantics of relational programs, efficient relational composition methods, cost-effective reliability assessment methods, supporting tools for writing, executing, and dynamically composing relational programs, and evaluation of the diverse-capability architecture using several problems. The successful completion of this research will result in a scientifically rigorous and practical approach for achieving certifiable high assurance for safety-critical systems.